Basic Particle Physics

The research will focus on three aspects of non- accelerator particle physics: 1) A large balloon-borne experiment (EXAM) will be used to search for evidence of large scale quantities of antimatter in the universe. Data from a 1988 flight will be analyzed and at least one additional fight will be made. 2) The world's largest underground particle detector (MACRO) currently being constructed in Italy will be used to search for monopoles and study cosmic ray neutrinos and muons. 3) Cryogenic detectors will be developed to search, at high levels of sensitivity, for dark matter, the so called "missing mass" of the universe. This work will be done by scientists from Boston University in collaboration with scientists from other institutions.